SBIR Phase I: Novel Nano-Crystal Materials That Enhance Solar Cell Efficiency

This Small Business Innovation Research project is to develop and apply a novel nano-crystalline functional material to existing commercial solar cells or modules, to significantly enhance their energy conversion efficiency, without incurring much cost or disruption to existing solar cell production process.

By significantly enhancing the efficiency of existing solar cells, this project could impact the commercialization of solar electricity and benefit the Nation's environment as well. The proposed approach is economical and easily-adoptable step to increase output from the current commercial solar modules without changing the existing production process.